GSA Penrose Conference Entitled: "Mid- Cretaceous to Recent Plate Boundary Processes in the Southwest Pacific"

9814381
Baldwin

This action provides partial conference support for a Penrose Conference entitled, "Mid-Cretaceous to Recent Plate Boundary Processes in the Southwest Pacific," to be held March 25-31, 1999, at Arthur's Pass, South Island, New Zealand. Results are expected to increase focus of research plans on this important subject.
***